Mathematical Sciences: Knot and 3-Manifold Invariants Derived from Finite-Dimensional Hopf Algebras and Bialgebra Constructions Arising in Quantum Groups

This award supports research on Kauffman's knot invariants and Hennings' 3-maniforld invariants, and the connection between Hennings' invariants and the 3-manifold invariants described by Reshetikhin and Turaev. General classes of solutions to the quantum Yang-Baxter equation will also be sought by imposing certain conditions on a bialgebra closely associated to the Faddeev-Reshetikhin-Takhtajan construction. The principal investigator will also study the classes of finite-dimensional quasitriangular Hopf algebras and ribbon Hopf algebras emphasizing constructions from which new knot invariants are derived from given ones. In addition, products related to the Hopf algebra dual of the quantized coordinate ring of affine groups will be investigated. Quantum groups are a new area of research for both mathematicians and physicists. On the mathematical side, it combines three of the oldest areas of "pure" mathematics, algebra, analysis and geometry, yet it is of great interest to physicists working on conformal quantum field theory.